UW Planning Grant Proposal to join CELDi

An Industry/University Cooperative Research Center Planning meeting will be conducted to determine the organization and viability of forming a research site of the existing I/UCRC for Engineering, Logistics and Distribution at the University of Washington. The University of Washington will focus on optimization with uncertainty and supply chain modeling including performance analysis, which will integrate well with the existing site's research areas.